Engineering Foundation Conference on Qualitative Methods forthe Analysis on Nonlinear Dynamics II, June 8-13, 1986, Asilomar Conference Grounds, Pacific Grove, Ca.

This project supports a workshop to evaluate research trends, opportunities, and priorities in nonlinear dynamics. This is a key sub-element of the Dynamic Systems and Control Program. The workshop is instrumental in supporting the continuous process of apprising the program of new research needs in the nonlinear dynamics field.